Spectroscopy of Interfaces

This Research Opportunities for Women Research Planning Grant is in the general area of analytical and surface chemistry and in the subfields of surface spectroscopy and separations science. During the twelve month period beginning 1 June 1989, Professor Conroy will conduct studies to test the feasibility of using selected biomolecules as vibrational spectroscopic probes to investigate interactions of these molecules with metal oxide surfaces of importance as stationary phases in chromatography. These studies will be carried out in the presence and absence of solvents of varying polar character. The goal of this work is to point the way to more detailed characterizations of the molecular interactions that serve as the basis for chromatographic separations of biologically important species. These activities should contribute to Professor Conroy's establishing an independent research program at Virginia Polytechnic Institute and State University. The research area that is being investigated in this project is broadly important in separations science, surface science, and biotechnology. The results of this work could lead to the development of new techniques of bioseparations and the optimization of existing ones.